International Coordination Office for the Scientific Committee On Solar-TErrestrial Physics - Climate And Weather of the Sun-Earth System (SCOSTEP-CAWSES) Program

This project establishes an office for the expressed purpose of coordinating the scientific efforts of international and U.S. scientists, so that a comprehensive Sun- Earth interaction program is established. The effort recognizes that multi-national, multi-technique studies are essential for achieving a new understanding of short-term (Space Weather) and long term (Space Climate) variability throughout the solar-terrestrial domain. Specific themes for organized data collection and analysis include the solar influence on climate, Space Weather physics and operational applications, atmospheric coupling processes, and space climatology. Specific tasks within these themes are the planning and execution of data taking campaigns on a global scale, assimilation of data bases on a global scale and from a wide variety of instrumentation, and the coordination of end-to-end ("sun-surface") modeling capabilities using the assimilated data. Beyond the broader impacts of international cooperation manifested by idea, technology, and human capital exchange, the research focuses information useful for tracking global climate change and ozone distribution.